Unique Ascorbic Acid Recyling Proteins in Mammaliam Tissue

Ascorbic acid is maintained in some mammalian tissue cells at concentrations almost 20-fold higher than in plasma. In the mammalian system, ascorbate exists in either of two states; ascorbic acid, the reduced form, which may autooxidize to produce dehydroascorbic acid (DHAA). DHAA is toxic, and when it is taken up by cells, it is stored intracellularly in the reduced form. The mechanism of DHAA reduction to ascorbic acid inside cells is not clear. DHAA may be reduced nonenzymatically by a variety of -SH containing compounds, such as reduced glutathione, glutathione together with NADPH, or NADPH alone. In some cells, however, the rate of DHAA reduction to ascorbic acid is 2-5 times above the rate of the glutathione-dependent chemical reduction reaction. This suggests that a specific DHAA-ascorbic acid reduction system may be at work in some cells. In this laboratory, unique reducing activities have been detected in at least one type of tissue. Preliminary data indicate that DHAA-reduction activities are attributable to at least two separate proteins; one protein appears in the cytosol and the other is membrane associated. In the present proposal we will attempt to isolate and characterize the action and synthetic regulation these presumptive DHAA-reduction proteins and determine their role in normal cell function. %%% Ascorbic acid is as important compound in animal cells. However, on the way to the cells, ascorbic acid may react with oxygen and form a toxic derivative called dehydroascorbic acid (DHAA). To protect themselves, when the cells take up DHAA, it is converted to ascorbic acid. The question arises whether ascorbic acid is formed from DHAA by a chemical reaction inside cells, or whether there is a specific enzyme system the causes the reaction to occur. The latter case may be correct, because some cells can convert DHAA at a faster rate than can be explained by just an ordinary chemical reaction. Preliminary results in this laboratory suggest that two proteins do exist in certain cells, which may form a system to change DHAA to ascorbic acid. One protein exists in the cell cytoplasm and the other one seems to be bound to cell membrane material. We will try to purify these two proteins and determine how they operated to change DHAA into ascorbic acid. We will also try to determine what causes the cell to form these proteins and whether they are important for the cell to have.